Collaborative Research: CSR-PDOS: Designing Large-Scale Distributed Systems for Realistic Failure Models

Large-scale distributed systems are now being regularly built and

deployed. Being large-scale, they are comprised of many components

- computers, communications infrastructure, storage devices, and

so on - all of which are prone to failure (that is, exceptional

nondeterministic behavior). Designing large-scale systems to cope

efficiently with such failures is a difficult and ongoing problem;

to do so effectively requires a much deeper understanding of how

they actually fail. To gain such understanding, the PIs are

collecting information on the failures of three actual large-scale

systems: a data grid, a desktop grid, and a peer to peer cooperative

backup system. This data is being collected either through cooperation

with other funded projects (eg, the BIRN project) or by actually

deploying the system themselves. The collected failure data is being

used to develop more abstract failure models that can be used as the

basis of algorithm and system development. The PIs are using these

failure models to understand how the systems being studied can be

improved (for example, by having higher availability, lower overhead,

or better performance than the original systems which are based on much

less precise failure models). The PIs are making available all the failure

information that they collect (after being anonymized) via the web.

Failure models and protocols are being made available through papers,

which are also distributed when ready via the project web site. This

information is of interest to those designing, constructing and

deploying new large-scale systems.